Nuclear Physics Research at Intermediate Energies

This award deals with a program of studies in intermediate energy nuclear physics using the accelerator facilities at MIT- BATES, TRIUMF, and IUCF. At MIT-BATES measurements are proposed of the gamma-ray angular correlation when electrons are scattered from protons inelastically with the emission of a gamma-ray at the (e,e) resonance region of the nucleon. At TRIUMF and IUCF, inelastic proton scattering studies will be continued, with gamma-rays detected in coincidence with the scattered protons. In addition, at IUCF, measurements will be made of the differential cross sections and analyzing powers for the intermediate energy proton capture reaction. This experimental program is based on the use of a very large sodium-iodide scintillator spectrometer which has been optimized for high-resolution detection of gamma-rays in the energy range up to about 500 MeV. The development of the sodium-iodide scintillator spectrometer has been made possible through various university grants.